ROLE: Understanding and Describing the Design Experiment

This project examines some of the research methods currently in use for educational research projects and produce a series of reports and publications on the Design Experiment method that was developed by Ann Brown. The researchers would host meetings, develop an online graduate course, and dedicate a web site to the purpose of explicating the design experiment methodology and characterize its power and limitations for making claims. This research method has gained wide support among some education researchers and yet the method itself is interpreted differently by those using it. The purpose of this project is to clarify and provide a basis for informed use of the method in the future.